MRI/RUI Acquisition of Instrumentation for Integrated Structural Testing and Digital Image Correlation Laboratory

Abstract
The principal innovation of this proposal is that DIC is envisioned as the
primary strain measuring technique in a large-scale structural testing facility. This non-
contacting technique yields a fully quantifiable strain field in two or three dimensions by
manipulating digital images. This emerging technology has not yet been harnessed for the
study of civil engineering structures.
The acquisition of these instruments, when coupled with current renovation of laboratory
space within the Division of Engineering, will provide a versatile structural testing facility that will
support a coordinated effort between faculty and students in Civil and Environmental
Engineering, Mechanical Engineering, and Mathematics. The diverse, yet well-linked expertise
of the senior personnel enables a broad range of research that includes structural steel, timber,
reinforced concrete, fiber-reinforced polymer (FRP) materials, corrugated paper containers, and
the transient stresses in sport equipment.
The structural testing request consists of hydraulic equipment, data acquisition
instruments, signal conditioning devices, shop tools, and various transducers.
The resulting structural testing facility will serve as a blueprint of versatile, cost effective,
and nimble laboratory design for other small undergraduate institutions, by building the
facility from industrial components.
The pedagogical value of the DIC technique as an aid to visual understanding in
science, mathematics, and engineering will be disseminated through publication and
conferences.
Initially, the DIC technique will be used in six engineering courses. As new research
areas are explored with the requested facilities, it is anticipated that six additional
engineering courses may benefit.
The diverse talents of the research team offer the potential to extend these new
techniques into disciplines outside of engineering.